Research Starter Grant: Enrichment Culture Studies of Anaerobic Methane Oxidation

Intellectual Merit
The anaerobic oxidation of methane is a microbially-mediated process by which the
reduction of sulfate is coupled to the oxidation of methane. This process is prevalent on a
global scale and is estimated to consume between 12 and 50% the net modern
atmospheric methane flux (70 to 300 Tg per year). The microbes responsible for this
process are important as methane is a potent greenhouse gas in the atmosphere, and their
metabolism prevents large quantities of methane in the Earth from reaching the
atmosphere. Despite the importance of this process, the responsible organisms have
never been cultured in the laboratory. Recent studies conducted in our lab indicate that
sustained growth of these organisms is possible in the laboratory given the appropriate
conditions, especially elevated pressures of methane (50 to 150 atmospheres). We
therefore propose to continue growth of these enrichment cultures, to characterize the
microbial community composition and physiology of the enrichments, and to isolate the
methane oxidizers. Specifically, we propose to:

1) Characterize changes in microbial community structure as well as in methane and
sulfate metabolism during growth of successive enrichment cultures,

2) Characterize growth of the CH4-oxidizing archaea in the enrichment cultures
including species-specific analyses of growth rates, carbon conversion efficiencies,
growth morphologies, and the impact of methane partial pressure,

3) Quantify isotope fractionation factors (for 13C and 2H) associated with methane
oxidation and lipid biosynthesis, and

4) Isolate the responsible organisms using modified roll tubes at elevated (100
atmosphere) methane levels.

Broader Impacts
In addition to the studies proposed above, this work will also lead to development of new
methods for culturing strictly anaerobic bacteria and archaea at low temperatures with
high gas pressures. These methods promise to enhance infrastructure for microbiological
research.

The proposed studies also promise to enhance our understanding of anaerobic methane
oxidation and to lay a foundation for future studies. The ability to grow the responsible
organisms in the laboratory will allow for a variety of biochemical, genetic, physiological
and molecular studies of this environmentally important process. Key questions that may
be addressed in future studies include: 1) how is the stable methane molecule activated in
the absence of oxygen?, 2) can this chemistry be applied to methane cracking in an
industrial setting?, 3) what is the evolutionary history of anaerobic methane oxidation and
how does it relate to the evolution of Earth.s climate system?, and 4) is the physiology of
the isolate consistent with environmental observations of anaerobic methane oxidation?
Understanding the physiology of these organisms and isolating them in the laboratory are
the first steps in answering these and other important questions.